Research Starter Grant

Gene expression is the primary mechanism in which information encoded by the
genome is converted into developmental, morphological, and physiological phenotypes.
Thus, understanding the amount, structure, and patterns of gene expression variation is
of fundamental importance. However, very little is known about how gene expression
varies within and between populations and how gene expression variation contributes to
phenotypic variation. The goal of this proposal is to begin to bridge this critical lack of
knowledge by using microarray technology to study gene expression variation in human
populations. To this end, gene expression levels will be measured in individuals from
geographically diverse populations and genes that are differentially expressed between
individuals within the same population and differentially expressed between populations
will be identified.

The successful completion of this project will have important practical benefits for
society. For example, the data will provide the first systematic and global
characterization of gene expression variation within and between geographically diverse
human populations. In turn, this information will provide the foundation for making more
principled inferences of phenotypic variation in humans, including the genetic
contribution to disease. In addition, this project will fulfill an important educational need
by providing interdisciplinary training opportunities for the next generation of scientists,
which will enable them to address and solve challenging biological problems.